RUI: An Observational Exploration of the Late Stages of Close Binary Star Evolution in Low to Intermediate Mass Stars

This award will support an observational study of binarity in the central stars of planetary nebulae. This stage of stellar evolution represents the penultimate phase of evolution for low- and intermediate mass stars, and very little is known about the evolution of binary stars during this stage. Close binaries are expected to evolve further into merging or mass-transfer systems, which would then manifest themselves as cataclysmic variables; they could also be the precursor systems to Type Ia supernovae. The project will involve a combination of multi-color photometry and spectroscopy with the aim of discovering new binary stars in planetary nebulae and characterizing some in detail.

It is expected that the project may have a significant scientific impact on the areas of supernova research, cataclysmic variables, and novae. It will also contribute to the development and training of students at a primarily undergraduate institution.